Adapting Multimedia Instructional Materials to Communicate Engineering and Information Technology Issues to Business Students

Computer Science (31) This project involves the adaptation of multimedia case studies originally designed for undergraduate engineering classes and their implementation in introductory business classes. The original case studies were developed by the LITEE Group, an NSF-supported project, at Auburn University.

The intellectual merit of the activity is that there will be case studies that will provide business students with knowledge and skills related to engineering and IT concepts and better prepare them for the workplace. The evaluation plan utilizes qualitative and quantitative instruments to assess student learning. Under broader impact, the results should be of interest to other institutions and will be disseminated through the Web, workshops, journals, and conferences. Also, it is expected that, with the technical knowledge that business students gain from this project, there will be improved interaction between management and technical personnel in industry.